RIA: Dynamics of Oscillatory Neural Systems

This project explores next-generation neural computing based on oscillatory behavior of neuron columns found in the visual cortex and olfactory bulbs of mammals. The biological basis for looking further than magnitude of signals is sufficient as supported by recent discoveries such as evidence of oscillations in the olfactory bulbs of rabbits which helped them to determine the sex and age of other rabbits. That state of neuron would not be considered as a simple level or magnitude, but rather a combination of magnitude, frequency, phase, and perhaps other attributes, of its output relative to other neighboring neurons. This research seeks to analyze and characterize the behavior of coupled oscillatory systems by mathematically deriving closed-form solutions to the dynamic equations and simulation, the behavior of the coupled oscillatory columns can be observed by varying the stimulus, self-feedback gain, lateral coupling, and frequency parameter of oscillation. The effects of Gaussian noise on large networks of oscillatory columns will also be investigated.